Workshop: Pacific Northwest Microsystems and Nanotechnology Meeting (Panomino) 2008. To be held on September 3-7, 2008 at University of Washington Friday Harbor Laboratories.

Objective:
The objective of this effort is to provide partial support to the Pacific Northwest Microsystems and Nanotechnology Meeting (Panomino), which will be held at the University of Washington Friday harbor Laboratories, and will bring together U.S. researchers, scientists, engineers, and students who are interested in microsystems and nanotechnology for three days of lectures and discussions.

Intellectual Merit:
This is a recently established regional workshop that will include not only research presentations, but also tutorial sessions. It will cover emerging research themes relavant to the micro and nano systems interests of the ECCS division, including self-assembly from nano- to milli-scales, integrated biosystems, and nanofiber technology.

Broader Impact:
The scope of coverage includes tutorial and discussion sessions, and will involve a range of participants from industrial representatives to academic researchers and students. It is expected to provide a rich educational environment.